Problems in Modern Analysis

The proposer will work on Operator Theory problems,
problems related to invariant subspaces and to
stability. The proposer has developed a new technique
to construct invariant subspaces by using different
kinds of extremal vectors. This has, so far, led to
new and unified constructions of invariant subspaces
for large classes of operators, including operators
commuting with compact or normal operators. It has
also led to strengthenings of so called Two Sequences
Theorems, which are connected to invariant subspaces.
There are several directions to refine and improve this
techniques and the proposer intends to do so.
The study of stability under perturbations of cyclicity,
supercyclicity or hypercyclicity is still in its
beginning, both for operators and vectors. This is
strongly connected to the study of which properties are
carried by large resp. small classes of operators. The
proposer intends to carry these studies further.

The study of operators and their invariant subspaces can
be seen as a generalization of linear algebra, where
matrices and their eigenvectors are studied. Although
these are problems in "pure" mathematics, they are
closely connected to the many applications of linear
algebra to Physics, Biology, Genetics, Economics and other
sciences as well as to the applications in industry.
Operators can be seen as infinite matrices and are a suitable
tool for the study of large and complex systems depending on an
unbounded number of parameters.